SHEBA Project Office, Phase 2

ABSTRACT OPP-9720144 MORITZ, RICHARD UNIVERSITY OF WASHINGTON MOORE, JAMES UNIVERSITY COPERATION FOR ATMOSPHERIC RESEARCH This project is a key component of a large, coordinated, multi-investigator program, Surface Heat Budget of the Arctic (SHEBA) Ocean. The research program will be conducted for 14 months from a ship frozen into the ice pack. The combined set of measurements in SHEBA will allow refinement of climate models for the Arctic region. Those improved models will lead to better predictions of the climate and the permanence of the Arctic ice cap under a proposed global warming that could occur if atmospheric carbon dioxide levels are increased above present levels. This project will project a management office for SHEBA. The office will facilitate a set of core measurements at the field site, coordinate investigator reporting/planning efforts, and provide information both to the general public and other funding agencies participating in joint research projects.